Individual Nomination: An Expansion of Mentoring Efforts to Support Leadership Enhancement and Preparation of Women and Minorities Within Engineering: Project LEAP

LESIA L. CRUMPTON-YOUNG University of Central Florida

Dr. Crumpton-Young is an engineering scholar who excels at research, teaching and service. She has comprehensively and effectively integrated viable research experiences with mentoring, thus has increased the numbers of women and minorities in engineering. Dr. Crumpton-Young is the first African American woman to graduate with a Ph.D. from the College of Engineering at Texas A&M University as well as the first African American woman to be Department Chair of an Industrial Engineering Department.
Throughout her career, she has engaged in mentoring activities and increased student awareness and engagement in the field of engineering and in so doing has created and increased pipelines of students to enter the engineering field. She has mentored over 280 STEM students and 35 faculty members nationally. She is actively involved in efforts to mentor and introduce engineering to minority students in the community through outreach activities that are targeted at reaching disadvantages students.

Dr. Crumpton-Young mentors numerous undergraduate students in her research laboratory, advises other undergraduates at a time when she held administrative duties as Associate Dean of Engineering. She holds leadership roles with the Society of Women Engineers and the National Society of Black Engineers and served as the Director of the Center for Engineering Leadership and Learning. Through her role in this center, she has expanded her mentoring activities to support Leadership Enhancement and Preparation of women and minorities within engineering. Additionally, she mentors and advises many graduate students as they seek the M.S. and Ph.D. degrees. Dr. Crumpton-Young helps establish faculty development and mentoring programs for minority serving institutions and new faculty, including those new to her campus at the University of Central Florida.